Conference: Travel Grant Program for the 13th International Biophysics Congress to be held September 19-24,1999 in New Delhi, India.

Glaeser
MCB 9900522

The International Biophysics Congress meets once every three years. The
13th congress is to be held in New Deli from September 19-24, with the
Biophysical Society of USA participating. The need for scientific
interaction at the international level is clear and this meeting provides a
proper forum for the exchange of information and ideas in the general area
of Biophysics. The presence of US scientists, especially those of the
emerging generation is encouraged. The support from NSF will emphasize
support for young US investigators.